Combustion in the Turbine: Transonic, Accelerating, Mixing and Reacting Flows

Abstract - Sirignano This is a theoretical, computational, and experimental study examining multidimensional, transonic, multicomponent, reacting flows in a high Reynolds-number range, with emphasis on the coupling between combustion processes and fluid-dynamic phenomena in an accelerating or decelerating flow. The impacts on efficiency of the energy conversion, on hydrodynamic stability, and on the potential formation of oxides of nitrogen are considered. Energy efficiency is examined in situations in which temperature is limited by material constraints so that expression of released energy as kinetic energy is advantageous. Hydrodynamic stability is studied in reacting flows where severe density stratifications and strong pressure gradients are present. Effects of reduction of flame temperature in the stream, including potentials for extinction and reduced nitrogen oxide formation, are analyzed. This is primarily a study of fundamental issues and broad applications, but one application will be explored in some detail: combustion in turbine passages in ground-based gas turbines. This study could potentially lead to new concepts for design of turbines that are more efficient, more stable, and less polluting than extant models. Broad applications wherever gas turbines are used would be foreseen, including electric power generation, aircraft propulsion, and other power systems.